Studies of Nuclear Reactions and Structure (Physics)

This grant supports the research program of the experimental nuclear physics laboratory at Florida State University. The laboratory includes a superconducting linear accelerator and an FN tandem Van de Graaff accelerator injector. The research of the laboratory lies in six main areas. The macroscopic properties of nuclear reactions with heavy ions are studied through inclusive and coincidence measurements of fusion, fission, breakup, and incomplete fusion reactions. High resolution resonant particle decay spectroscopy is applied to studies of selected high spin, high excitation energy states. The interaction of collective and single.particle excitations is examined in f.p.g shell nuclei using gamma.gamma and multiparticle.gamma coincidence techniques. Spin dependent effects in reactions, including asearch for a spin orbit force, will be carried out using reactions induced by beams of polarized lithium.6 and lithium.7. The effects of angular momentum on octupole excitations will be pursued experimentally using a variety of techniques. Collaborative research at CEBAF, Argonne and other laboratories is also conducted, as is collaborative research with outside users of the Florida State University accelerators. In addition, ongoing projects to construct an optically pumped polarized ion source, and a large solid.angle Bragg curve spectrometer will be completed.